Biodiversity and Ecosystem Informatics (BDEI): Biodiversity Information Organization Using Taxonomy [BIOT]

EIA-0131835
Guach, Susan
University of Kansas Center for Research Inc.

BDEI: Biodiversity Information Organization using Taxonomy (BIOT)

Summary

Biological resources are the basis of much of this Nations prosperity. The wise
stewardship of these riches affects current and future generations and, therefore, must be
rooted in decisions based on the best information available. Because of the rapid growth
of all content on the Internet, there is a corresponding increase in online biological
information of all types. However, the sheer volume of data, and its widely varying
quality and physical distribution make it impossible for decision makers to make critical
decisions without the benefit of the existing body of information. This project aims to
investigate and develop intelligent knowledge management tools and deploy them in this
important domain. In particular, we will investigate the use of a taxonomy as a reference
ontology to provide a conceptual framework to allow intelligent agents to browse
biodiversity information in a variety of formats widely distributed on the World Wide
Web.

Our goals are four fold: 1) to investigate the use of a taxonomy as a reference ontology
for browsing biodiverity information; 2) to evaluate techniques to automatically classify
biodiversity information (web sites and individual web pages; 3) to personalize the
information presented to the users expertise and needs; and 4) lay the groundwork for
larger, multidisciplinary, efforts in intelligent search, visualization, and personalization of
biodiversity information.

This project proposes to build on existing work currently being done at the University of
Kansas related to information discovery, retrieval, and delivery, particularly the
OBIWAN project for ontology based search, browsing and visualization of Web
resources and the PEET project for preserving and extending biodiversity information. A
partnership has already been established between the University of Kansas and the
National Biological Information Infrastructure (NBII) to capitalize on the knowledge,
expertise, and tools that have grown out of the existing University of Kansas NSF
research agreement. As a result of this partnership, the first intelligent search agent for
biodiversity information, BioBot, has been developed.